Collaborative Research: Universal models of self-organized criticality

Fractals and power-law tails are ubiquitous in nature and are also the hallmarks of statistical physics systems at criticality. Theoretical physicists in the late 1980s proposed that this could be explained by natural systems spontaneously converging to critical states. This theory of self-organized criticality is widely accepted by physicists based on their simulations of simple mathematical sandpile models, which appear to self-organize. But these models are poorly understood mathematically and in some cases have been proven to behave contrary to physicists' expectations. This project aims to establish that activated random walk serves as a suitable mathematical model for self-organized criticality with the universality expected by physicists, and to investigate its behavior. The results of this project will be important not just to mathematicians but to physicists as well. This project involves graduate and undergraduate students.

Activated random walk and the stochastic sandpile model are two of the mathematical models thought to exhibit self-organized criticality. One concrete goal of the project is to prove the density conjecture for activated random walk in dimensions two and higher. We will do this by establishing that the driven-dissipative version of activated random walk converges to the critical density of the fixed-energy version. We will also study the mixing time of the driven-dissipative activated random walk in all dimensions and determine critical exponents of activated random walk. Finally we will establish similar results for the stochastic sandpile model.